Oceanographic Technical Services, 2018-2022, R/V Pelican

Louisiana Universities Marine Consortium (LUMCON) proposes to support technical services on R/V Pelican, a 116-foot, general purpose research vessel operated by the consortium as part of the Academic Fleet which is scheduled by the University National Oceanographic Laboratory System (UNOLS). LUMCON requests support for basic services only; they will provide one technician on each seagoing research project. In addition, the technical services group will maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. The budget in this proposal is for the first year of a 5-year continuing grant.

The Program received the annual report on 2/1/2018. As required, the report provided information regarding 2017 operations as well as outlining plans and a proposed budget for 2018. Research vessels in the Academic Fleet provide support for researchers from a variety of federal and state agencies, as well as some private sponsors. All users (or the appropriate funding agencies) share support for basic technical services on the vessel equally, via a day-rate, with each paying a share of the costs based on fractional usage of the vessel. The rates are negotiated annually with the NSF Program Manager

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.